Image Processing System for Low Vision People

9362053 Bliss There is a large and growing number of persons with visual diseases, such as age-related maculopathies. The proposed investigation is to develop efficient methods of evaluating an individual's vision to determine the parameters for design of a corrective spatial filter and to implement the filter and to implement the filter in a practical system for reading and writing. The individual's contrast sensitivity function (CSF) is to be used in determining the filter design parameters for image enhancement to be used in the system. The system that is envisaged would make use of low cost, high performance PCs (such as the 486). One part of the system will provide for image acquisition, image enhancement, and image storage for easy access. The other part of the system is to access portions of the stored enhanced image, zooming, and display. Successful results from the investigation will provide for significantly improved reading performance than provided by magnification alone. ***